Animate Robotics Vision

This grant is for continued research in four areas of active vision: pre-categorical gaze control for estimating kinetic depth, time to adjacency, symmetry, and relative motion; object identification and tracking using opponent-color histograms; spatial memory and saccadic gaze control using object-centered frames of reference; and connectionist architectures for real- time task management.